Research in Classical Minimal Surface Theory

DMS-0405836
Title: Research in classical minimal surface theory
PI: William H. Meeks, University of Massachusetts (Amherst)

ABSTRACT

Proposed Research Project Abstract

In this proposal the researcher will study the geometry, asymptotic
behavior, conformal structure and topology of properly embedded
minimal surfaces in three-dimensional Euclidean space. One of the main
goals of the proposal is to classify all of the properly embedded minimal
surfaces which can be parametrized by domains in the Euclidean plane and
to describe the asymptotic geometry of all finite genus examples.
Related theoretical techniques concerning compactness, regularity and
convergence of minimal surfaces of locally bounded genus will be
investigated as well. One hoped for application of this research is
to classify all smooth finite group actions on the three-dimensional
sphere. As an outgrowth of his recent joint manuscript with Charles
Frohman on the topological classification for minimal surfaces, the
researcher proposes to prove that Bryant surfaces in hyperbolic
three-space are unknotted.

Classical minimal surface theory has its roots in 18-th and 19-th
century mathematics. Minimal surfaces are the first
important examples of what is called the calculus of variations, first
described by Euler around 1735. Physically minimal surfaces can be
modeled locally as soap films on wires or by surfaces of least-area
relative to their local boundaries. Minimal surfaces play an important
role as a tool in the study of three-dimensional topology and
Riemannian geometry. The subject of minimal surfaces has a broad impact in mathematics and
physical sciences. Minimal surfaces are stationary fluid interfaces,so
their shapes arise in many physical problems. The work in this
proposal would classify the possible physical shapes which could occur
as infinite interfaces. Many of the known examples of minimal surfaces
are observed physically, so it is of interest to have a rigorous
theorem which predicts the shapes which can occur.
The research proposed here strongly impacts the area of classical
differential geometry of surfaces in three-dimensional Euclidean
space. As is well known to geometers, minimal surface theory has been
and continues to be one of the principal tools for proving theorems in
general relativity and three-dimensional topology. One well-known
such application is Schoen and Yau's proof of the Positive Mass
Conjecture. Recent work of Gabai on the Generalized Smale Conjecture
shows the continued importance of minimal surfaces in
three-dimensional topology. Most of the research proposed here is related to and
motivated by the hope that it will lead to a positive solution of the
Pitts-Rubenstein Conjecture and to the classification of
three-manifolds with finite fundamental group. This hoped for
topological application to one of the outstanding classification
problems in mathematics has its roots in previous joint research by
the researcher, Peter Scott, Charles Frohman and S. T. Yau. In part
because of the important connections with other areas of mathematics
and the ease in which it is possible to make computer graphics
pictures of beautiful classical examples, minimal surfaces continue to
be one of the principal topics for popular science articles and public
science exhibits. Thus, indirectly, the exciting research problems
outlined in this proposal help bring many young scientists and
mathematicians to the frontiers of research.